50th Anniversary Commemoration of the First Public Announce-ment of the Successful Test of Fission; Washington, D. C.; January l7, l989 (Physics)

On January 26, 1939 Niels Bohr of Copenhagen read a fateful telegram he had just received from Otto Hahn in Berlin to the assembled Fifth Washington Conference on Theoretical Physics at The George Washington University. The telegram announced "the successful disintegration of uranium into barium with the attendant release of approximately two hundred million electron volts of energy per disintegration." To commemorate the 50th anniversary of this event, the original sponsors, The George Washington University and The Carnegie Institution, will hold a one-day conference on January 17th at The George Washington University. The surviving members of the original attendees will be invited as special guests to the conference. In addition, it is planned to host 300-400 members of the scientific, engineering, and political communities.